Topological Field Theory and Integrable Systems

Abstract

Award: DMS-0505669
Principal Investigator: Ezra Getzler

In this proposal, we study an important mathematical problem
suggested by string theory: the construction of a theory of
secondary Gromov-Witten invariants. In other words, an analogue
of rational homotopy theory for Floer homology. While the ideas
of rational homotopy theory have been extensively applied in
algebraic topology, they have not received much attention in the
study of Gromov-Witten invariants, or more generally, of
topological field theory; this proposal attempts to rectify
this. We will examine whether an analogue of formality holds for
compact Kaehler targets. Our results will be formulated in terms
of our theory of homotopy Gerstenhaber algebras, and Tamarkin and
Tsygan's theory of homotopy Batalin-Vilkovisky algebras.

In a sense, this proposal addresses the difficult problem of
understanding the mathematical formulation of string theory,
which is itself a very promising descriptions of the fundamental
laws of nature. Throughout its forty year history, string theory
has drawn on the insights of modern mathematics. But there is a
sense among researchers that the final formulation of the theory
has not yet been attained: we believe that this proposal will
bring us closer to finding the mathematical language which is
needed for such a description.